Inner-Shell Excitations in Heavy Ion-Atom Collisions (Physics)

It is proposed to continue a comprehensive experimental study of the excitation of inner electron shells of heavy atoms by 0.1 to 3.0 MeV ion-atom collisions. This investigation will shed light on curve crossing and other quasimolecular phenomena which occur at small internuclear separations. Two scattering apparatuses are available for this study: The first, completed during the present NSF grant period, detects Auger electrons or characteristic x rays in coincidence with ions scattered to angles between 2 and 20 degrees by single collisions with gaseous targets. The nature of the Auger electron-ion coincidence spectra obtained with this apparatus is surprising and the primary thrust of this proposal will be to continue with this new effort. The data obtained is differential in nature and provides unique and detailed information about the excitation and decay of unusual atomic and molecular states. The second apparatus is a high resolution x-ray spectrometer and will be used to investigate the radiative decays corresponding to the above Auger decays. These efforts will be supplemented with calculations using a Dirac-Fock program. It is the total of these three efforts that will provide new and unique information on the interaction of ion beams with matter. The results of this research will aid in the understanding of basic processes in atomic interactions, and will be of use in such practical problems as controlling high-temperature plasmas and modelling naturally-occurring phenomena.